Matching Funds for Glass Duplicates of New Palomar Sky Survey

This award funds (with 50% matching by the University of Minnesota) a glass copy of the Second Palomar Sky Survey for U.S. astronomers. In addition to making this valuable resource available for Minnesota Automated Plate Scanner to produce a digital database available over the Internet.